The Robotics Corridor Collaborative

Cuyahoga Community Colleges Youth Technology Academy (Tri-C / YTA), Carnegie Mellon Universitys Robotics Academy (CMU), California University of Pennsylvania (CUP), Cleveland Municipal School District (CMSD), and industry advisors are partnering on a multifaceted effort designed to achieve the following results:

(a) Improving Tri-C technical training and pre-engineering outreach into the CMSD, an impoverished district with a 58 percent minority student population;
(b) Integrating CMU-developed exemplary curriculum and Department of Defense-funded technician-level training materials into Tri-C training programs;
(c) Providing CMU-directed training for CMSD teachers and Tri-C faculty who work closely with CMSD students and are part of the Tri-C partnership;
(d) Using input from CMU, CUP, participating Tri-C faculty and CMSD teachers, and industry advisors to assess the impact of the curriculum on student understanding of technician-level skills, engineering problem-solving methodologies, and general STEM education; and
(e) Improving technology/STEM teacher and community-college faculty competency across the Robotic Corridor, from Northeast Ohio through Southwestern Pennsylvania.